Copepod Production in the Skagerrak in Relation to Hydrography, Primary Production and Bacterial Production

This award supports William T. Peterson and a graduate student from SUNY at Stony Brook to collaborate with Thomas Kiorboe and others of the Danish Institute for Fisheries and Marine Research in a study of marine plankton ecology off the Danish coast. The Danish group is carrying out studies to measure what proportion of the primary production by phytoplankton passes through copepods to fish (the classical food web) and what proportion passes through bacteria and heterotrophic flagellates (the microbial loop.) They are also trying to establish whether there are predictable relationships between vertical mixing, phytoplankton taxonomic composition and the proportion of primary production passing through each of the two food webs. Dr. Peterson has been invited to participate and direct the work on copepod production, specifically by comparing and contrasting copepod production in three hydrographic regimes (mixed, stratified, and frontal water columns in the Skagerrak) and comparing total secondary production to rates of primary production in the three areas. This study represents one of the first attempts at the simultaneous measurement of biomass and production of all the components of the first two trophic levels of a food web in the sea. As such, this study will lead to a fuller understanding of the factors controlling transfer coefficients and food chain efficiency, and could lead to a re-evaluation of the role of copepods in marine food webs.